Jury Reactions to Verdict Consequences: Blindfolding and Channeling

Early research portrayed the jury as a decision-maker generally responsive to the evidence presented at trial. More recently, critics of the jury have raised a variety of questions about jury competence, voicing doubts about the ability of juries to analyze complex data logically and to return verdicts based on evidence rather than irrelevant considerations. Critics have advocated a variety of methods of reining in and controlling the jury, from a complexity exception to the constitutional right to a jury trial to less drastic measures like specially qualified juries and rules that limit the information juries receive and are permitted to use in making their decisions. This approach neglects the fact that the jury is an energetic information-processor who contribute as well as responds to trial evidence. The proposed research seeks to examine the effects of recognizing the jury as an active decision-maker. It is planned to study jury responses to the anticipated consequences of their decisions in three contexts: automatic trebling of jury awards in anti- trust cases; sentencing alternatives in capital cases; and insurance status of the defendant in personal injury cases. In each case, the response of juries to traditional and new methods of channeling and controlling their consideration of verdict consequences will be examined. In a set of sub-experiments, the researchers will also assess reactions to expert testimony, looking at the way juror expectations about dangerousness and preferences for concrete versus abstract evidence affect their decisions. While there is a large body of research on the jury, much of it fails to go beyond studying the production of a verdict to examine the jury as an active information processor trying to make sense out of its task. The proposed research explores how recognizing the jury's expectations and treating the jury as a collaborator helping to develop a meaningful basis for decision, rather than as a passive recipient simply accepting information and instruction, can help us better to understand its decisions. It promises to improve both our conceptual framework and to answer policy-relevant questions about the rules and procedures that ought to govern the use of juries.